Research Experience For Undergraduates-Environmental Sciences and Engineering at Clarkson University

This award provides funding to Clarkson University for the support of a three-year REU in Environmental Sciences and Engineering under the direction of Dr. Stefan J. Grimberg. This 10-week summer program will provide seven undergraduate students with the opportunity to conduct independent research within the area of sustainable management of environmental systems with the assistance of a faculty mentor. In addition, the students will participate in research group meetings, write a report, present their work at a University-wide undergraduate research symposium and will be encouraged to publish their work in peer reviewed publications.